Ozone, Nitrogen Oxides, and Oxidants in a Rural Heterogeneous Photochemical Environment

Atmospheric ozone and other photochemical oxidants will be studied at a rural mountain site in the Shenandoah Mountains of Virginia, a region surrounded by natural hydrocarbon emissions and downwind of the industrialized midwest and the urbanized eastern seaboard. Measurements of nitric oxide, ozone and UV light will be co-located and coincident with measurements of non- methane hydrocarbons, carbonyl compounds, carboxylic acids, particulate and gaseous inorganic anions and cations, organic nitrates, hydrogen peroxide and organic hydroperoxides, which are to be measured in clear air, interstitial air in cloud, and in two descrete size fractions of cloud water. The data sets will be combined and used to investigate net ozone production and oxidants in clear and cloudy air at a forested rural site with variable hydrocarbon and nitrogen oxide concentrations. The combined data sets will be further used to elucidate mechanisms of natural hydrocarbon oxidation. The measurements represent the first concurrent set of measurements in the gas and aqueous phases of non-methane hydrocarbons, their partially oxidized products (carbonyl compounds, carboxylic acids, organic hydroperoxides, organic nitrates), and the factors controlling ozone and other oxidants in-cloud.